Collaborative Research: Science of Broadening Participation -- From School to Work: A Longitudinal Study of Gender Stratification in Science and Engineering

SES-1123747
Susan Silbey
Massachusetts Institute of Technology

SES-1123905
Brian Rubineau
Cornell University

SES-1124169
Carroll Seron
University of California-Irvine

Science of Broadening Participation -- From School to Work: A Longitudinal Study of Gender Stratification in Science and Engineering

Abstract
The United States and other advanced economies face unprecedented challenges in technical areas such as energy, environment, and defense. Solving these challenges requires a diverse, highly educated labor force, with professional expertise in science, technology, engineering, and mathematics (STEM). Contributing to the problem of under-production of STEM professionals in the U.S. is the pronounced gender segregation in some STEM professions, especially in engineering. As a consequence, we have a much smaller population from which to develop the needed engineering expertise. This project seeks to help us understand what causes continued gender segregation in STEM fields.

An earlier study conducted by the PIs surveyed and interviewed a group of men and women for five years, beginning with the first year of their college education. This panel included a disproportionate number of young men and women planning to major in engineering, who had demonstrated exemplary achievement in science and mathematics. Yet, after four years of engineering education, shortly before college graduation and entry into the labor market, a significantly smaller percentage of the women than the men planned to pursue careers in engineering. Analyses showed that more women than men reported lower confidence in their ability to have a career in engineering.

The current project revisits these men and women at the next career stage -- 5 years after their anticipated college graduation, and during their early years in the labor market. At this time, the project will collect data that enables researchers to compare the role of individual (confidence), organizational (workplace-related), and social network factors to explain gender specific career track decisions, especially regarding STEM fields. Methodologically, this study expands a unique longitudinal dataset to explain the critical transition from college and post-graduate training to the professional workforce. The theoretical model used adjudicates among the most important contending explanations for persistent gender stratification in professional employment by testing social psychological theories of causal individual and gender differences, organization-level processes, and social capital theories concerning the efficacy of social networks.

Broader Impacts
Findings from this research may help explain patterns of attrition from and persistence in STEM fields, and engineering in particular. This important issue is of interest to private- and public-sector employers, current and future professionals, as well as institutions of higher education. Moreover, persistent gender segregation in STEM could compromise the competitive position of the United States in a global economy. Findings from this study may also contribute to policy developments aimed at improving the nation's scientific competitiveness.